Research Initiation: Coprime Fractional Representations of Nonlinear and Time-Varying Systems

The objective of this project is to develop a theory of coprime fractional representations for nonlinear and time-varying systems which is analogous to the theory of such representations available for finite-dimensional linear time-invariant systems. The basis for developing such a theory for nonlinear and time-varying systems is viewed to be input-output representations of these systems. For nonlinear input-output maps defined on some appropriate spaces, the concepts of domain, range, and graph of the mapping are identified and are viewed to be a basis for defining right coprime fractional representations of the mapping. A right fractional representation of a possibly unstable mapping as a ratio of two stable mappings is said to be right coprime if it characterizes the graph of the mapping. A method of constructing right coprime fractional representations of nonlinear systems based on this concept is proposed. The method is based on finding a stabilizing state-feedback for a state-variable representation of the input-output map. The concept of left coprime fractional representation is also discussed. Finally, the application of this theory to analysis and synthesis of nonlinear feedback systems is proposed. The significance of the proposed research is in developing a design theory for nonlinear and time-varying systems which takes advantage of many important results which have been obtained in the context of linear systems by using coprime fractional representation methods.